Modeling Housing Damage in Earthquakes and Resulting Mass Care Needs

ABAG recently developed estimates of uninhabitable dwellings in future earthquakes affecting the San Francisco Bay Area. George Washington University used these estimates in developing projections of shelter populations in future earthquakes in the San Francisco Bay Area. This project expands these efforts by more systematically examining data on the residential structures tagged by local government building officials as unsafe (red) or limited access (yellow) following the Loma Prieta earthquake in accordance with the ATC20-California Office of Emergency Services procedures for postearthquake safety evaluation of buildings. The data on daily occupancy load of Red Cross shelters following that earthquake also are examined. The project has five principal objectives: (1) develop models of housing habitability based on intensity, distance from fault source, and underlying geologic materials for the San Francisco Bay Area; (2) model how shelter populations are related to structural damage, including data on buildings that are redtagged as uninhabitable, as well as yellow-tagged as damaged based on actual Loma Prieta data; (3) assess the demographic characteristics of the shelter population versus the overall impacted population through use of the 1990 Census (conducted only five months after the earthquake) and Red Cross data from the Loma Prieta event; (4) relate the recovery time of the impacted housing stock to the structural type of those buildings for Loma Prieta; and (5) apply these lessons to future Bay Area earthquakes. The goal of the project is to improve the nation's emergency planning, disaster response and residential rebuilding efforts in future earthquakes.